Improving Courses in the Social Sciences with Microcomputers

Through the acquisition of microcomputers and related software, the research design and analysis courses offered by the Departments of Psychology, Sociology and Behavioral Sciences have been improved by providing students "hands on" experiences and "real life" application of theory. Students' experience in designing their own programs and experiments have also been enhanced.